The Thermodynamics of Gas Sorption in Glassy Polymers

The separation of gas mixtures is a problem of great industrial significance. Recent advances in polymeric technology have led to an increasingly greater use of membranes for these separations. Different polymeric materials are commonly evaluated for a given separation by measuring gas sorption isotherms and diffusion coefficients. Frequently, the sorption data obtained is interpreted using the dual mode model. While this model has proved useful in practice, it is largely empirical in nature and does not directly relate sorption properties to other material properties. This project is an investigation of the sorption of gases in glassy polymers from a thermodynamic point of view. A theoretical framework for the thermodynamics of gas sorption in glassy polymers will be established. Heats of sorption will be measured experimentally and used to validate the theoretical results. Preliminary results suggest a relationship between sorption, mechanical properties, and the heat of mixing which might aid in the screening of materials for gas separation. A comparison of the results to the dual mode model allows an interpretation of certain dual mode parameters in terms of mechanical and thermodynamic properties.